University of Virginia Center on Rapidly Reconfigurable Mission Critical Wireless Sytems

An Industry/University Cooperative Research Center Planning meeting will be conducted to determine the organization and viability of forming a research site of the existing I/UCRC for Wireless Internet Technology at the University of Virginia. The University of Virginia will focus on research in the area of rapidly reconfigurable mission critical wireless systems.